Particle Acceleration in Solar Flares

This project will study particle acceleration in solar flares. A key problem in solar flare physics is the manner in which protons and other particles are accelerated to several tens of MeV in a few seconds as evidenced by impulsive -ray emission. This process is called first-phase ion acceleration. The most widely accepted models in explaining this acceleration are shock acceleration and stochastic acceleration by Alfven or magnetosonic waves. Neither of these models has been developed self-consistently or has direct observational verification. This project examines the consistent development of a single-loop manetohydrodynamic (MHD) wave stochastic acceleration model. A half-loop is divided into 2 coronal sections attached to a model chromosphere and photosphere. The coronal sections include the source where time-dependent acceleration including wave-particle and wave-wave interactions occurs, and a transport section in which protons propagate diffusively. Unlike previous work, it will be a complete model for nonrelativistic energies including a nuclear interaction calculation. Thus, it will be possible to study the effect of changing the spectrum and/or power of turbulence in the source, the loop size, etc., throughout the whole loop. In short, we shall be able to put the stochastic acceleration model to a very thorough test. Observational consequences in prompt -ray emission come from the nuclear interaction part of the calculation. These results will increase our understanding in this important area of solar research. #